CAREER: Causality- Driven Mitigation of Cascading Failures in Distributed Systems

Modern internet services, from video streaming to online banking, run on cloud systems that contain huge collections of computers. A small problem in one part of a cloud system can set off a chain reaction that spreads and grows, knocking entire services offline for millions of users. Such chain reactions are hard to stop because they feed on themselves: each failure creates conditions for more failures of the same kind. This project develops new ways to spot chain reactions before they start, stop them as they build up, and trace what set them off when they slip through.

The self-reinforcing chain reactions described above are known as positive feedback loops, and they underlie many large-scale cascading failures in cloud computing. Existing defenses rely on black-box mechanisms such as rate limiting and circuit breaking, which cannot reach loops that originate inside the system. This project takes a white-box approach grounded in causality analysis to understand, detect, and mitigate them. The work is organized into four thrusts. The first thrust performs architecture analysis to expose intrinsic positive feedback loops embedded in distributed system designs and breaks them through generic causal loop prevention. The second thrust develops advanced testing techniques that stitch failure propagations across fault injection experiments to uncover accidental loops. The third thrust designs runtime defenses that apply causal inference to detect and control emerging loops. The fourth thrust delivers interventional debugging techniques for safe online diagnosis of runaway loops in production.

This project will improve the reliability and resilience of cloud computing infrastructure that society increasingly depends on for healthcare, finance, education, transportation, and communication. By developing white-box understanding and mitigation of positive feedback loops, this work will transform the practice of building and operating reliable large-scale systems. A new graduate course will bridge distributed systems and complexity science, giving students cross-disciplinary training at the intersection of distributed systems, software engineering, and causal inference. Outreach activities in this project will engage undergraduate and high school students, building a pipeline of talent equipped to address the reliability challenges of next-generation cloud infrastructure.